A Data-Driven Approach to Programming Multiprocessor Systems

The purpose of this research project is to attack the issues of programming and performance evaluation of multiprocessor systems. This is done by a systematic selection of several representative problems in the numerical as well as the non-numerical domain and their implementation on a machine based on Inmos Transputers. Comparison with off-the-shelf multiprocessors (e.g. Sequent and Alliant) will be undertaken. The work will proceed with theoretical efforts in developing highly programmable user environments as well as experimental work in assessing the validity of the functional parallel programming approach.